A Seismic Investigation of Solar Active Regions

Braun, Douglas 95-28249 Dr. Braun's project is a combination of both observation and theory to determine and interpret the characteristics of acoustic scattering and absorption by solar active regions. The measurements include a database consisting of recent high quality solar observations carried out at the geographic South Pole in 1990 and 1994 and on Kitt Peak. To be determined are the complete acoustic scattering properties for a wide variety of active regions with different surface morphology and at different stages of their evolution. The theoretical effort will be to model acoustic scattering by sunspot flux tubes, improving on the PI's present model with a more realistic treatment of the effects of the magnetic fields in the sunspot scatterer. Finally, using both theoretical modeling and observations, the scattering signatures produced by completely submerged inhomogeneities will be explored. ***